The Texas A&M Regional Undergraduate Chemistry Research Program

Texas A&M University is being supported to continue a Research Experiences for undergraduates (REU) SITE. The purpose of this SITE is to provide meaningful hands-on research opportunities in contemporary chemistry for outstanding undergraduate students under the supervision of experienced research chemists. For the summer of 1988, the program will support 9 students recuited from Texas A&M and other institutions. Research activities will include studies in the following areas: o Applications of polymers in catalysis o Reactivity of sulfur-ligated nickel(II) hydrides o Heterobimetallic systems bridged by difunctional ylides o Theoretical studies of inorganic and organometallic systems o Solid state NMR studies o Proton inventory investigations of bioorganic systems o Model reactions for the biological methylation of arsenic compounds o Rapid screening using mass spectrometry o Plastics the conduct electricity o Enzyme reaction mechanisms o SEM study of magnetite from carbonaceous meteorites o Novel cycloadditions and annulations o Thin-layer electrochemical study of noble metal catalysts o Adsorption isotherms of small molecules on polymer-based reversed-phase chromatographic packings